Incorporation of New NMR Applications in the Undergraduate Chemistry Curriculum

A 60-MHz Nuclear Magnetic Resonance Spectrometer with variable temperature, spin decoupler, and fluorine observation accessories is being used in courses in organic, physical, biochemistry, instrumentation and student research at St. Joseph College. A variety of new student experiments are being developed. For example: the study of conformational and keto-enol equilibria with the variable temperature accessory; the simplification of complex spectra using the decoupling accessory; and inorganic NMR applications through fluorine-19 observations.